National Standards-based Science Materials for Parents of Students with Disabilities

The proposed one-year DEI project will create standard-based science materials that
parents of students with disabilities can use to reinforce science instruction covered in
grades K-5. The Science Learning Ideas Pages will emphasize activities that parents
can do with their children at home (and in the community) and will be distributed by
teachers to parents. It has been demonstrated that parent involvement in their child's
education is one of the prime reasons for success. Seventy-six sheets will be produced
that describe supplemental activities. The materials will be standards-based, and
therefore will be appealing for many teachers to use. These sheets will be available
free over the Internet, and will be distributed to state Science and Special Education
Coordinators and to national parent organizations. Similar supplemental materials have
been developed by this group in the past, but focusing on literacy and recreation. The
project is well thought out, and it involves a strong team with a good blend of STEM and
disability experience. One weakness was that there was little reference to the
strategies the investigators would use to make the activities accessible for students with
disabilities. The evaluation plan is strong, with both parent and teacher perspectives.
The reviewers unanimously felt that the Science Learning Ideas Pages could be just as
useful for students without disabilities as with disabilities. Therefore, we would suggest
that the investigators take a universal design approach to develop an inclusive
document that could help parents of students regardless of whether their children have
a disability.